CISE Research Resources: Parallel Logic and Constraint Programming, with Applications to Planning and Web Accessibility

EIA-0130887
Enrico Pontelli
New Mexico State University

The Laboratory for Logic, Databases, and Advanced Programming (LLDAP) plans to acquire modern computing equipment to create an infrastructure for parallel and distributed computing and for software development for autonomous agents. The equipment requested consists of four Pentium III shared memory machines (with four CPUs each) to provide shared memory programming support. The four machines will be connected using fast gigabit Ethernet, creating the testbed for experimenting with distributed memory programming. The Project will also involve the acquisition of a set
of five autonomous robots. The equipment will be used to support research in three inter-related projects: (1) The goal of the first project is to pursue the development of technology to support exploitation of different forms of parallelism from traditional logic programming and from constraint programming languages, (2) The second project develops technology for the creation of planners capable of dealing with incomplete knowledge, dynamic domains, and sensing actions, (3) The goal of the third project is to develop technology to promote accessibility of Web documents in the context of Web-based course-ware engineering.